Oceanographic Instrumentation

The Moss Landing Marine Laboratory of San Jose State University will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V POINT SUR, a research vessel owned by the NSF and operated by the University. A substantial part of the ship's operating schedule during 1989 is in support of NSF.sponsored research projects. The instrumentation will also increase the capabilities includes: .Acoustic transceiver for determineining the precise depth under the ship and for measuring seafloor characteristics, .SAIL data logging modules for increasing the number of environmental parameters that are routinely monitored, .Navigational information distribution system for the remote read.out of precision navigation data at several locations, .Deck controller for the expendable bathythermograph system, .De.ionized water filter system for making reagent quality water for a variety of shipboard experiments. The instrumentation described above will increase the capability of the organization to support NSF.sponsored research and engineering projects.